Non-LTE Radiation Hydrodynamic Simulations of Coronal Loops

The PI's objective in this project is providing detailed spectral signatures of coronal loops from model calculations which consistently account for dynamics and energetics from the corona through the chromosphere. He will simulate a variety of loop lengths and heating mechanisms, and will examine thermal stability. The PI will also perform model calculations of coronal loops extending into the chromosphere using self-consistent radiation hydrodynamic calculations to provide definitive spectral signatures of these loops. He will use the ALTAIR, a highly sophisticated computational tool that integrates hydrodynamics and frequency dependent radiative transfer code and increases the speed in solving generalized non-LTE problems.***